Wireless Access Across Water for a Rural School District

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for two years to connect a small rural school district to the Internet. The wireless connection allows substantially lower cost Internet access through a neighboring telephone company than from the larger telephone company serving the district.